Synthetic Bioreceptors and Enzyme Mimetic Signal Interfaces for Advanced Molecular Detection

Many important molecules in the human body, such as hormones, metabolites, and therapeutic drugs, change in concentration as health conditions evolve. Tracking these changes over time can provide early warning of disease, guide medical treatment, and improve overall health outcomes. However, most existing biosensors used to monitor such changes rely on biological components, such as enzymes or antibodies, which are fragile and poorly suited for long-term or continuous use outside laboratory settings. This project develops a new class of biosensors based on durable synthetic materials that work like enzymes. Ultra-thin polymer sensing layers are formed directly on electrode surfaces and engineered to recognize specific molecules, with built-in catalysts that help drive chemical reactions. After target molecules bind, a small electrical signal is applied, producing a chemical reaction that creates a readable electrical signal proportional to the number of bound molecules. Electrical control also allows the sensor to release reaction products and reset itself, enabling repeated measurements in complex biological fluids. Because the materials are made using a flexible design approach, the same sensor platform can be easily adapted to detect different molecules. By replacing fragile biological receptors with durable, electrically controlled synthetic materials, this work overcomes limitations in sensor stability, reusability, and long-term operation. The resulting technology advances biosensing science through reliable continuous monitoring, supports hands-on interdisciplinary student training, and enables improved health and environmental sensing.

This project establishes a biosensing platform based on electrocatalytic surface molecularly imprinted polymers that function as synthetic enzyme mimics for continuous, real-time electrochemical detection of small molecules. The goal is to overcome fundamental limitations of biological receptors and conventional molecularly imprinted polymers, including limited robustness, weak electrochemical transduction for neutral analytes, and short operational lifetime under continuous use. The sensing strategy integrates selective molecular recognition with electrically driven electrocatalytic signal generation. Ultra-thin polymer layers are grown directly from electrode surfaces using a controlled, surface-confined radical polymerization process to incorporate imprinted binding sites along with embedded redox-active catalytic motifs, enabling efficient electrochemical transduction. Upon target binding, an applied electrical potential induces controlled redox conversion that produces a steady-state signal proportional to analyte concentration while enabling reversible release for sensor refresh. The polymer synthesis approach is modular, allowing imprinting chemistry and functional groups to be tailored for different molecular targets while preserving a common device architecture.The project is organized into three aims: (1) development of catalyst-functionalized electrodes and mechanistic understanding of electrically triggered redox conversion; (2) engineering of high-performance electrocatalytic surface-imprinted sensing layers with controlled geometry, antifouling behavior, and refresh capability; and (3) validation of continuous monitoring platforms for wearable and therapeutic sensing applications. Expected outcomes include new design principles for synthetic enzyme-mimic bioreceptors and scalable biosensing platforms compatible with wearable electronics.